LT: Selective Alum Recovery and Simultaneous Solid Wastes Reduction in Large Water Treatment Plants

9814265 Sengupta The objective of this research is to understand the mechanisms which allow selective Al(III) recovery by composite ion exchange (CIX) materials while rejecting dissolved organic matter, manganese, heavy metals, arsenic and others. Further, to utilize the understanding of these mechanisms to optimize the CIX properties for enhanced separation and recovery of alum from water treatment sludges. Alum, or aluminum sulfate, is the most widely used coagulant in treatment of drinking water in the U.S. and is a major component (25-50%) of the two million tons of water treatment sludge solids disposed of daily. The successful recovery and reuse of this material would not only reduce the demand for this resource, but more significantly would reduce the quantity of sludges to be disposed of while costs and environmental scrutiny increase. Recent studies have demonstrated the prospect of selectively recovering metal precipitates from the complex background of sludge or slurry using a new type of CIX. The thin-sheet morphology of the CIX makes it compatible with the sludge medium while the functional groups offer high aluminum selectivity. This grant is made pursuant to the joint NSF/Lucent Technologies Industrial Ecology Research Fellowships Program 1998.